Highly-Correlated Systems

Dimension scaling is used to study correlation effects in few electron systems. The molecular collective motions appear in a natural way at low order perturbation theory and quantitative energies at higher orders. The work extends the approach to excited and autoionizing states of two electron systems and begins the exploration of higher symmetries, interdimensional degeneracies and geometries in these systems.